NSF Instrumentation and Laboratory Improvement: Quality in Manufacturing Laboratory

A unique approach is taken for enhancing theoretical course work in statistical process control (SPC). By introducing laboratory work into the course using simulated scenarios of actual processes, students will learn the implication, demands, and constraints of SPC tools . A new Quality in Manufacturing Laboratory (QIML) is created to improve the learning process in our quality control course. The primary goal of this project is to provide a realistic manufacturing environment for students to investigate the effectiveness of SPC techniques. This is achieved through discrete event simulation with a graphics display. The QIML consists of a set of ten student computer workstations, instructor workstation, and system station on an Ethernet local area network. Students can perform a variety of functions at their workstation through the course of the experiment. A large screen projector displays an overall picture of the system so that students maintain a wide-scope perspective on the problem. Experiments include process capability, SPC monitoring, experimental design, acceptance sampling, and total interaction. The equipment provides for interaction between the instructor and students as well as among students.